Open-System Behavior in the Formation of Oceanic Cumulates

9402436 Elthon The PIs observed isotopic disequilibrium between coexisting minerals of cumulate gabbros from the Mid-Cayman Rise (MCR). Their preliminary data indicate that exotic, interstitial fluid may be responsible for much of the compositionally strange features that characterize these rocks. In this project the Pis will undertake a detailed electron and ion probe study of these rocks. This will allow the PIs to characterize such an "exotic" fluid. `em